CAIG: Accelerating Ocean Data Assimilation with Machine Learning

The project aims to exploit the power and potential of machine learning to improve the integration of ocean data into models using so-called data assimilation techniques. Ocean data assimilation combines real ocean observations with computer models of ocean currents to get a better picture of the ocean state now and in the future. Machine learning technology is expected to speed up ocean data assimilation, which is costly in terms of computer resources, and make it more reliable by giving estimates about potential uncertainties in the calculations. Ocean data assimilation is important to scientists, natural resource managers, policy makers, and seafarers. It is also a good test case of a generic technical method that could be improved by machine learning. The project will support workforce development by engaging graduate and undergraduate students in interdisciplinary research at the interfaces of ocean dynamics, data assimilation theory, and machine learning.

The project is based on the hypothesis that transforming the high-dimensional space of ocean dynamics variables into a lower-dimensional space will make the underlying numerical computation more robust and easier to solve. Yet the introduction of the machine-learning-powered transformation can introduce noise or errors. We use conformal inference to characterize the uncertainty in the transformation and propagate that uncertainty back into the original space of ocean dynamics. Moreover, the project will develop new conformal inference methods to handle small data sets and variables from heavy-tailed distributions.